CAREER: Prospecting for planets

CAREER: Prospecting for planets

Abstract

AST-0645416

PI: Eric Agol

Dr. Agol will work to develop three novel techniques for detecting and
characterizing extrasolar planets around other stars: (1) the timing of
eclipses by giant planets to detect terrestrial-mass planets;
(2) finding a much larger sample of extrasolar planets with multi-object
radial velocity surveys and using these for transit timing, detection of
thermal emission, and statistical characterization of extrasolar planet
properties; (3) a feasibility and optimization study of direct imaging
of extrasolar planets with coronagraphic telescopes. This work will further
our understanding of the distribution of types of planets and their host
stars, the diversity of planet properties,constrain the formation mechanism
of other planetary systems, and possibly shed light on the formation of our
own solar system.

Dr. Agol will incorporate students from the University of Washington
Astronomy Department's Pre-major in Astronomy Program (Pre-MAP) into this
research program. Pre-MAP is a program to attract and retain traditionally
underrepresented students to astronomy and science, technology, engineering,
and math majors (STEM). Dr. Agol will oversee the program, recruit students,
and supervise student research as part of his role as the faculty director
of the program. Dr. Agol will also help in replicating this program in
other STEM departments (at the University of Washington) and will expand the
program to include community-college transfer students.

This award is funded by the NSF Division of Astronomical Sciences